TC: Small: Active physical layer fingerprinting of 802.11 and 802.15.4 wireless devices

From the “smart grid” to healthcare to national security systems,
wireless devices are playing an increasing role in technological
solutions. Their security and trustworthiness should be a major
concern.

Fingerprinting is an important technique in the cyber-defender
arsenal, because it helps expose deceptions essential to modern
multi-step network attacks. We develop methods and tools for wireless
physical (PHY) layer testing, thus improving trustworthiness of
wireless devices and equipping cyber-defenders with the tools they
need to protect wireless networks.

Active fingerprinting methods are the most direct and effective ones,
because they allow the administrators to initiate fingerprinting when
necessary, probe for a broader range of expected behaviors (thus
increasing the attacker’s workload to fake behaviors in order to
escape detection), and are easily tweaked (further increasing said
workload).

We develop robust fingerprinting techniques for wireless devices
that are based on active probing -- in the physical layer of 802.11
and 802.15.4 networks.

To empower exploration of the attack surface of actual wireless
networks and to facilitate active physical-layer testing of wireless
devices, we also will develop a framework for crafting and injecting
"marginally" malformed physical layer signals that correspond to
common 802.11 and 802.15.4 frames. In particular, we will facilitate
fuzz-testing of wireless devices.

Both fingerprintable responses and (possibly exploitable)
vulnerabilities of wireless devices amount to differences in
implementations of protocol logic. We will develop methods for testing
this logic in the wireless PHY layer, and look for potentially harmful
security vulnerabilities in its common implementations.